Collaborative Research: III: Toward Human-Centered, Generalizable, and Verifiable Automated Video Surveillance: A Verbalized Vision-Language Model Paradigm

Video surveillance is widely used in traffic monitoring, workplace safety, public safety, and crime analysis, but reviewing large volumes of video still depends heavily on human operators. Continuous monitoring is costly, time consuming, and vulnerable to fatigue and oversight. Existing automated systems also struggle to explain their conclusions in ways that people can understand, analyze complex events unfolding across time and multiple camera views, and verify the source of generated reports. This project will develop more accurate, understandable, and trustworthy automated video surveillance (AVS) technologies that reduce the burden on human operators while supporting informed decision making in safety-critical settings. The project will also engage undergraduate and graduate students in research, integrate project materials into artificial intelligence and computer vision courses, and publicly release models, datasets, software tools, and educational resources. These activities will support workforce development and strengthen research and education capacity in Iowa and Alabama.

The proposal will develop a human-centered framework for AVS using vision-language models (VLMs). The research includes three coordinated activities. First, a verbalized learning approach will enable VLMs to learn human-understandable concepts of anomalous events and generate explicit rationales for their analyses during training and deployment. Second, new spatiotemporal synthesis methods will help the models integrate information across long video sequences in single- or multi-camera settings to describe and explain complex events. Third, verification mechanisms will be incorporated into VLM-generated reports so that human operators can verify their origin and assess their trustworthiness. The resulting framework will be evaluated on representative surveillance tasks and complex application scenarios, including traffic monitoring and workplace safety. The project is expected to advance multimodal reasoning, explainable video understanding, and verifiable generation while establishing methods for responsible deployment of VLM-based AVS systems.